Mathematical Sciences: Seminar on Stochastic Processes

9317561 This award provides funds to partially support the 1994 Seminar on Stochastic Processes to be held at Texas A&M University. It will be the latest in a successful series of annual seminars begun in 1981 giving eminent researchers and young specialists the opportunity to work together in discussing the state of the art in stochastic analysis, potential theory and Markov processes. For young researcher this presents an invaluable opportunity to showcase their work as well as to learn from the senior members of the audience. This award provides funds to partially support the 1994 Seminar on Stochastic Processes to be held at Texas A&M University. It will be the latest in a successful series of annual seminars begun in 1981. For young researcher this presents an invaluable opportunity to showcase their work as well as to learn from the senior members of the audience.